Space Weather: Solar Wind Events as Predictors of Geomagnetic Response

Collaborative activities with the Institute of Ionosphere and Terrestrial Magnetism (IZMARIN), and the Institute of Space Research of the Russian Academy of Sciences (IKI) will be carried out through joint projects and student exchanges. The joint activities will address, (1) the relationship between interplanetary shock parameters and their geoeffectiveness, (2) the effect of sharp solar wind pressure pulses upon the Earth's magnetosphere, (3) the refinement of a neural network prediction scheme to determine how well a solar wind monitor will predict plasma flux and velocity and magnetic fields at Earth, and (4) comparisons between the time integral of the z-component of the interplanetary magnetic field observed at the L1 Lagrange point and other spacecraft.